Promoting Reasoning and Inquiry in Science and Mathematics (PRISM)

This three-year Teacher Enhancement project will develop mentoring systems in which teacher-leaders and administrators nurture new teachers and encourage experienced teachers implementing change. Teams of middle-level teachers (Grades 5-8) from Northwest Missouri will participate in a four-week summer institute for each of three years. Up to 30 mathematics and 30 science teachers will participate. The program combines parallel programs of 130 hours of content specific coursework in mathematics or science, plus 275 hours of integrated teacher development activities during the summer institutes and academic year. Experienced teachers who participate in the renewal portion of the project will follow a phased mentoring plan, mentoring one novice teacher in Year One, two in Year Two and three in Year Three. The project includes a four-day Administrator Academy.